Combined Research - Curriculum Development and Optical Networking

This award provides funding to the University of Central Florida for the support of a Combined Research-Curriculum Development (CRCD) project entitled, "Combined Research-Curriculum Development and Optical Networking," under the direction of Dr. Guifang Li. The goal of this three year program is to develop a series of courses in fiber-optic communications with an aim of not only increasing the number but also improving the quality of the skilled workforce entering the fiber-optic communication industry. In particular, the objectives are: 1) Fill a void in quality and up-to-date optical fiber communication educaton at both the upper undergraduate and introductory graduate level by developing four courses by incorporating the latest knowledge and techology base. 2)Design, test, and refine course content and delivery methods to a diverse audience employing appropriate learning theory and instructional technologies. 3) Design ways to institutionalize the courses into existing curriculum. 4) Dissemination of the course materials on a national scale.